Enhanced Plasmid Stability Using Multiple Killer Genes

9224864 Wood This proposal is on research to investigate enhanced plasmid stability by using multiple killer genes. Enhanced plasmid stability can be useful for a higher level of expression of recombinant protien products in E. coli and for effective genetic engineering strategies for waste treatment and bioremediation. The two main points to be examined include: (1) the role of media composition and temperature on plasmid stability; and (2) the effect of using two killer genes for enhanced stability. Experiments in both chemostat and shake - flask cultures will be performed. In addition, some modeling will also be performed. ***